REU: CONACyT: Speech Driven Facial Animation

This project will produce a faithful 3D animation of the face of a speaker, accurately articulating visible speech, and preserving the natural synchronism between the utterances of the speaker and the corresponding facial movements, including as much of the gestural prosody as possible. This is accomplished through a series of transformations from the speech input to the display. From the phonetic perspective the PIs will study the relation between phonemes and visemes at a level of granularity below the phoneme. From the computer graphics perspective, they will model the facial features so that realistic synchronism with the utterances takes place using the computer vision technique of active contours and the animation technique of multilayer implicit models. Finally, from a prosodic point of view they will apply the concepts of gestural scores which should account, on a more principled basis, for the prosodic phenomena and contextual influences in speech. The gestural model has evolved into a novel task-dynamic approach to invariant articulatory gestures based on an orchestration (by means of a rather parsimonious "score") of a second order spring-mass system reaching for target specific goals. An acoustic features table includes the phasing and duration which characterize gestural scores. This work has important implications not only for animation (films and television, interfaces for the hearing impaired, low bandwidth telephony, repeatable prosody), but also for basic linguistic modeling of prosody across the two languages (English and Spanish) being considered.